CAREER: Towards Unified Theory of Wireless Communications

Due to the difficulties in precisely computing some of the key
quantities, such as the channel capacities and the detection error
probabilities, most of the current analytical work in wireless
communications has been limited to asymptotic analysis in a number of
mutually separated regimes. As a result, the engineering conclusions
based on these studies are sometimes incompatible, making it hard to
apply the analytical results in the designs of practical systems. The
goal of this research is to develop novel approaches to address the
interactions among several key system parameters, to understand the
joint impacts of them, and to synthesize the different theoretical
results into one unified picture.

Specifically, this project studies the emerging new technologies in
multi-input multi-output (MIMO) channels and ultra-wideband
channels. Most current research on these systems has been focused on
different limiting cases, including high/low signal power, wide/narrow
bandwidth, and fast/slow time-variation of the channel. Such
asymptotic analysis greatly simplifies the problems. However, since
usually one parameter is isolated and taken to its limit, the relation
among different parameters is sometimes distorted, resulting in
inconsistent conclusions. This project aims to solve such problems by
developing new approaches to asymptotic analysis that address the
interactions among several key system parameters, including channel
time-variation, power and energy efficiency, bandwidth scaling,
reliability and delay requirements, and peak-to-average ratio
constraints. A key component of the new approach is to take multiple
parameters to their limits together, but keep a carefully chosen
relation among them. Such an approach, while maintaining the
simplicity of the asymptotic analysis, helps to describe a continuum
that bridges the gap between the current results for different extreme
cases.